Source to Sink: MARGINS Science Plan for Sedimentology and Stratigraphy

Funds are provided to hold a community workshop of sedimentary geologists to generate a science plan for the sedimentology and stratigraphy aspects of the MARGINS initiative. The workshop will identify important new directions for the future of sedimentary research and recommend strategies for accomplishing those goals. Detail interdisciplinary studies will also be considered. A four-day meeting is planned where some 50 scientists will get together and produce a report for NSF and the MARGINS community.